CAREER: Polymer Physics with DNA

This project will develop new applications of DNA in polymer physics, in fields as diverse as adhesion, polymer brushes, reptation, low dimensional systems, confined geometries, and topological statistical mechanics. It is expected that this research will provide significant new progress towards the resolution of open questions in these fields. Specific experiments that will be performed include the following. The kinetics of adhesive fracture will be studied by measuring the dynamic forces as two entangled polymers are separated. The static and dynamic behavior of a DNA brush will be measured, thus testing the predictions of various theories by providing a direct measurement of single molecule configurations and dynamics. The theory of reptation will be critically examined by searching for correlated motion of polymers in a melt. Low dimensional statistical mechanics will be studied by confining DNA in microfabricated structures. Finally, the effects of topological knots on the statistical mechanical behavior of DNA will be investigated by directed knot tying. This research will be integrated with educational activities on many levels. Graduate students will be trained with an interdisciplinary range of skills. An upper level undergraduate/first year graduate course on `The Biophysics of DNA` will also be developed, that will serve to provide an integrated curricula knitting together the various theoretical and experimental applications of DNA to biophysics, and vice versa. This grant is made under the NSF `CAREER` Program. Support is provided jointly by the MPS Division of Physics, the MPS office of Multidisciplinary Activities, and the BIO Division of Molecular and Cellular Biosciences.